AF: Medium: Collaborative Research: Optimality in Homology - Algorithms and Applications

Many applications in science and engineering encounter the problem of
identifying and processing topologically interesting features in the
digital representation of a geometry or data. Such features often need
to be optimal with respect to some metric (measurement). It is
recognized that homology groups from algebraic topology play an
essential role in these computations. Although the study of structural
properties of the homology groups has a rich history in mathematics,
their computations in combination with geometry are not that well
studied. The principal investigators (PIs) propose to study these
fundamental questions thoroughly, along with their connections to
practical problems from science and engineering.
Intellectual merit: Efficient solutions of the optimality questions in
homology computations require both mathematical and algorithmic
developments. The PIs bring aboard these required expertise. Apart
from the synergistic effect of the proposed study on mathematics and
theoretical computer science, the close ties with various applications
in science and engineering will play a synergistic role between
computational fields such as computer graphics, computer vision,
sensor networks, computer aided design, and scientific fields such as
biology, physics, chemistry, and others.
Broader impacts: Optimization of aspects of homology groups provides
important insights in many scientific and engineering applications
ranging from tunnels in protein molecules to voids in large
machines. Solutions of such problems can aid in the manufacturing of
better machines, designing of new drugs, and rapid modeling of
customized objects. The educational impact of this project is in a
large synergy between mathematics and computer science motivated by
real applications. Course notes, internet distributions, and software
systems developed through the project will enable the scientific
community to study challenging problems in geometry, topology, and
algorithms. Graduate students supported by the project will develop
skills in mathematics and theoretical computer science and also in
writing robust, efficient, and user-friendly software.